Algorithms for Distributed, Fault-Tolerant and Secure, Computing and for Routing and Control in Parallel Computers

The work on the Information Dispersal Algorithm (IDA) makes it possible to store and route information in distributed and parallel systems so as to achieve highly fault tolerant and space-time efficient performance. Applications of this method will be developed, in particular to routing in asynchronous parallel computers and to storage of information in disk arrays. There now exist, non-cryptographic, secure (i.e. secret and resistant to malicious adversaries) distributed computing protocols. These methods will be applied to extend the ITOSS (Integrated Toolkit for Operating System Security) to the distributed system environment so as to achieve system security based on distributed authority. IDA brings about an improvement in routing of data through computation on that data. This suggests a study of the possible tradeoffs between computation and switching of data. Randomized algorithms will continue to be a major tool in the study of the above questions.